Microbial Degradation of Detrital Lignocelluloses in Marine Environments: Production and Fate of Particulate and Dissolved Degradation Products

Microbial Degradation of Detrital Lignocelluloses in Marine Environments: Production and Fate of Particulate and Dissolved Degradation Products. Hodson will continue his studies on the microbial transformations and fate of lignocellulose in marine waters and sediments. Lignocellulose is a major component of coastal and estuarine marine plants and resulting decomposition products. Thus, it represents a potentially major source of carbon to the marine food web. However, lignocellulose is highly refractory to microbial degradation and indigestible to most animals. Microbial transformations to partial degradation products or microbial biomass or both is required before carbon from this abundant polymer can enter the food webs. Hodson has developed several new methods for preparing and following the microbial transformations of specifically radiolabeled lignocelluloses from native marine plants in salt marshes and tropical mangrove swamps. His studies have revealed basic differences in the fate of lignocellulose in marine and terrestrial/freshwater environments, and he and his colleagues have accumulated basic data on rates of lignocellulose mineralization under areobic and anaerobic conditions, and on the relative efficiencies with which bacteria in several marine environments utilize carbon derived from lignocellulose. The present study will employ new methodologies for following lignin and lignocellulose transformations in marine environments and expand the research to examine the rates of production, efficiencies of bacterial utilization, and rates of turnover of dissolved organic compounds derived from the degradation of particulate detrital lignocelluloses. The principal investigator will use a time-series approach to expand his data set to include changes in biodegradability, rates of solubilization, and rates of incorporation into microbial biomass of lignocellulosic detritus from salt marsh and mangrove marine environments over periods ranging from one month to several years. This information will enable the accurate prediction of the persistence of lignocellulosic detrital material and its importance in the marine food web.